SBIR Phase II: Non-planar Spectral Breast Computed Tomography (CT)

The broader impact/commercial potential of this Small Business Innovation Research (SBIR) Phase II project is to make available to the public a new imaging device that provides the anatomical and functional information necessary for effective and efficient diagnosis of breast cancer in women with dense breasts. The device employs a novel design and method of generating high-quality, three-dimensional images of the breast anatomy comfortably and at low levels of radiation dose. By design, the device will occupy a small space and support fast and efficient patient imaging. When commercialized, it can be priced on par with existing x-ray-based imaging technologies. Given these benefits and the large existing need nationwide need for a thorough dense-breast imaging solution, there is significant commercial potential. The prime objective of the project is to significantly increase the sensitivity and specificity in cancer radiological studies of women with dense breasts. Accordingly, this device has the potential to become the next generation breast cancer imaging modality of choice for small clinics as well as large hospitals, available to both patients and clinicians everywhere imaging is performed.

This Small Business Innovation Research (SBIR) Phase II project supports development and validation of a comfortable, effective, dense-breast cancer imaging device built upon a new method and design for Computed Tomography (CT). This CT-based device does not require breast compression, and is smaller, faster, and higher in spatial resolution than alternative 3-dimensional imaging technologies. The instrument will provide spectral information used to distinguish deadly from non-deadly cancers from both dense and non-dense tissues across the entire breast, including regions near the chest and underarm. Nearly 50% of the U.S. female population has dense breasts. The most widely used technologies for breast imaging today —Mammography and Digital Breast Tomosynthesis — underserve these women. This technology cannot reliably image breast regions near the chest and underarm where cancers occur. Current methods also cannot reliably distinguish healthy, but dense, breast tissue from cancer. During this SBIR project, testing and validation of the developed device will be carried out using human-like surrogates called anthropomorphic phantoms. The company will demonstrate that this new technology provides high quality dense-tissue imaging, consistent whole-breast imaging, and spectral information that is of clinical benefit in cancer detection and diagnosis.